CAREER: Intelligent Sampling for Learning Complex Query Concepts

This research project will advance intelligent search engines by developing query-concept learners. Techniques for detecting concept drifts as well as multi-resolution image characterization will be developed. In particular the research will be based on two online algorithms, MEGA and SVMActive. It will also integrated text attributes in image searching and apply the technology to video data. The career development plan will include sponsoring undergraduate and graduate projects as well as incorporating the research into the Computer Science curriculum.